Request for a Scanning Spectrofluorimeter

This proposal requests funds to obtain a scanning spectrofluorimeter, associated epifluorescense microscope and computer. The instrumentation will be used in the research programs of several investigators, all of whom need to measure intracellular ion concentrations using various ion sensitive dyes. The specific projects in this proposal will investigate the role of intracellular calcium in cell volume recovery by invertebrate blood cells following a hypoosmotic stress; the role of calcium in acetylcholine receptor differentiation; the role of calcium in visual transduction in Limulus eye and vertebrate retina; the role of calcium fluctuations in the regulation of mitosis in plants.